TRP: The Manufacturing Engineering Education Partnership

9413880 Soyster Pennsylvania State University, University of Washington, University of Puerto Rico, and the Department of Energy/Sandia National Laboratories have teamed up to create an alternative core curriculum in undergraduate engineering focused on manufacturing. This new curriculum, which may start as early as the student's freshman year, will feature practice-based courses, building prototypes in a "Learning Factory", and student teams that compete for internal funding to build a new "product" on time and within budget-just as they would in a firm. The schools anticipate this new curriculum will eventually attract one third of their undergraduate engineering students. These three universities alone graduate 4% of the nation's engineers each year, including 4.2% of the women and 11.7% of the minority engineers.